Designing Robust Science Instruction: A Model for Thermodynamics

This investigation will test and refine a model of "robust science instruction" based on current research on learning and instruction and will also design and refine promising activities and technological tools for instruction in thermodynamics. A key feature of the proposed approach to science instruction is the use of dynamic simulations and real-time data collection to help middle school students (grades 7-8)to analyze naturally-occurring problems dealing with heat and temperature. The approach has four main components. First, these investigators proposed to identify and teach an appropriate, qualitative level of explanation for thermodynamics based on expert explanations. Second, they propose to create and refine dynamic simulations for the Macintosh and to engage students in analyzing naturally-occurring problems. Third, they intend to help middle school and college student in integrating information by such techniques as creating a "community of scholars" in the classroom, engaging students in predicting outcomes and helping teachers model complex problem-solving techniques, and motivating students to seek a few explanatory principles for a large class of events. Fourth, these researchers propose to tailor their approach to the needs of diverse populations including women, Hispanics, Blacks, and the learning disabled by in-depth longitudinal study of selected students. Significant contributions to this project are being made by Apple Computer, Inc. and the Foothill Middle School.